RUI: CSBR: Natural History: Securing and digitizing the world's largest Mexican bird collection

Natural history collections document Earth's biodiversity and are the raw material for studies of how that biodiversity arose and how it is maintained on our planet. Specimens in natural history collections are of practical importance as well, providing data on human disease and informing forensic science. This award funds the rehousing of an unparalleled natural history collection in new specimen cases. Currently the collection, one of the largest documenting the birds of North America, is under threat of degradation due to antiquated cases that no longer protect against pests and adverse environmental factors. Additionally, this award supports the gathering and dissemination of open-access data on the location of bird specimens. Digital images of specimens from under-studied avian groups will be made available through a new web portal that will engage scientists and the public alike. The location of the world's largest collection of Mexican birds, at a small liberal arts college in the United States, provides opportunities to train undergraduates, who are the next generation of museum scientists, in curation techniques as well as in the application of specimen data to address biological questions.

This project seeks to secure, georeference, and digitize the world's largest Mexican bird collection (63,000 specimens), located at the Moore Laboratory of Zoology (MLZ) at Occidental College in Los Angeles, California. Not only does the MLZ collection provide a window into Mexico's endemic bird diversity prior to a major period of development and deforestation, but also, for many widespread species that occur in the United States. The specimens housed at MLZ fill a large, critical gap linking bird populations of the entire North American continent. This project is urgent because new specimen cases are needed to replace antiquated cases that no longer prevent insect infestations and would not be able to protect against accidental flooding. In addition to new cases, the proposed activities include a major update to the taxonomy and organization of the collection, to facilitate the collection's research potential. A major goal of this project is to georeference, digitize and image the collection and make these data accessible as online resources to inform research and education. The MLZ's mission is to leverage our unique setting at a small liberal arts college toward: (i) Conducting cutting-edge research using natural history collections; (ii) promoting the use of natural history collections in undergraduate education and research; and (iii) promoting career development for underrepresented groups and women in museum science. More information is available at the following website: http://www.oxy.edu/moore-lab-zoology.